Group Travel International Cartographic Association Meetings, Budapest, Hungary - August 1989

Cartography has undergone rapid changes recently, as the growing use of computers in the preparation, construction, and analysis of maps has transformed the discipline. One of the most effective forums for the interchange of ideas and information among cartographers from throughout the world has been the biennial technical meetings of the International Cartographic Association (ICA). Representatives from the ICA's 63 member nations will meet in Budapest, Hungary, in August 1989 to present research papers, to convene multi-national commissions that plan and oversee collaborative research projects, and to meet informally to discuss scholarly matters of mutual interest. This award provides partial travel support to enable roughly one dozen American cartographers to attend the 1989 ICA meeting. This participation will be especially timely, because this meeting is the first ICA meeting held in 12 years in a Eastern Bloc country at which American cartographers will be in attendance. It therefore will provide an excellent opportunity for American cartographers to establish direct contacts with many of their Eastern European counterparts. Group travel support to the ICA meetings will improve scholarly activity by allowing more American cartographers to present the results of their research and to hear the latest conclusions of scholars from other nations. By enhancing the direct exchange of ideas in both directions, more sophisticated and effective cartographic research will result. The presence of more U.S. scholars at the ICA meeting also will heighten American participation in the collaborative work of ICA commissions, and this award will foster development of younger cartographers, because at least one-half of all funds will be directed to scholars who have received their Ph.D.s within the last seven years.